Information Exchange Meeting on U.S. Implementation of Antarctic Environmental Protocols

This action provides support for a conference on U.S. implementation of the recently signed Environmental Protocol to the Antarctic Treaty. Legislation is needed as part of the ratification process for the Protocol, and this meeting will be oriented to exchanging information and perspectives on the key issues and options that must be considered as Congress works to develop and pass the required legislation. The meeting will involve participants from all the organizations interested in the implementation process, including congressional staff, representatives of agencies with interests in the Antarctic, tour operators, and environmental organizations.